REG: High Performance Computing for Engineering Applications

9411846 Yalamanchili The School of Electrical and Computer Engineering, the School of Aerospace Engineering, the College of Computing and the School of Mechanical Engineering at the Georgia Institute of Technology will purchase a cluster of multiprocessor and uniprocessor graphics workstations interconnected by state of the art high speed communications networks to existing parallel supercomputers. This tested will provide a feasible hardware basis to pursue the development and application of new computational paradigms for large scale engineering applications. In particular, we foresee the ability to harness such high speed networks of specialized graphics and parallel machines such that components of applications can utilize distinct parallel machines while results from these distinct platforms can be visualized, integrated and manipulated in real-time on workstations. This integration opens new avenues for solutions to solving many large problem. The research projects that will be the primarily users of the equipment are drawn from the development of large scale engineering applications, and the technology to realize an integrated, interactive for engineering applications.